Seamless Integration

This project improves methods for teaching and learning calculus in a technology-rich classroom/laboratory setting, characterized by the seamless integration of technology and mathematics. Students learn calculus in a way that easily transfers to other courses, especially laboratory sciences. This project helps more students to successfully complete calculus courses and provides a better understanding of how to change the entire before-calculus curriculum. Through this project, students are prepared to address the quantitative problems they will meet in their personal and professional lives.